Mapping Science Exhibit at the 233rd National Meeting & Exposition of the American Chemical Society in Chicago, IL

With support from the Chemistry Division, Professor Katy Borner of Indiana University will convert her unique "Places & Spaces: Mapping Science" materials into a traveling exhibit in order to make these materials more widely available. Building on the success of test displays at the new New York City Public Library of Science, Industry, and Business (April 3rd - August 31st, 2006) and at the New York Hall of Science Children's Museum (on-going), this new project will commence with a display at the 233rd National Meeting & Exposition of the American Chemical Society in Chicago, IL (March 25-29, 2007). The exhibit has been very popular and has been widely covered in the press (see listing at http://scimaps.org). This program will enable this unique exhibit to travel widely and to help people to see and understand "science from above."